CRUI: Antibody Catalysts from Immunoglobulin Repertoires of Enhanced Diversity

CRUI: Antibody Catalysts from Immunoglobulin Repertoires of Enhanced Diversity

The objective of the proposed work is the exploration of expanded antibody repertoires as sources of more efficient antibody catalysts. Although catalytic antibodies are readily obtained by immunization of mice with transition state analogue haptens, the catalytic efficiencies observed are typically far lower than that exhibited by enzymes. To increase the probability of obtaining effective antibody catalyst, then, three methods for expanding the range of accessible immunoglobulin sequences are proposed: one, the isolation of antibody catalysts from murine germinal-center B cells (the locus of somatic hypermutation); two, the isolation of antibody catalysts from cattle and rabbits, species with germline immunoglobulin repertoires distinct from that of the mouse; and three, the creation of single-chain antibody catalyst, which can be expressed in bacteria and subjected to in vitro mutagenesis and selection.

Ten undergraduate students per year will work on the project in collaboration with
four Amherst College Professors--two from the Biology Department, and two from
Chemistry. Techniques in the fields of immunology, molecular biology,
synthetic organic chemisty, and fluorescence spectroscopy will be employed. The students will pursue their research full-time during the summer months and will have the
opportunity to work as research interns during the academic year.